Romania Travel Grant

Abstract:

The Travel Grant Request:
Research Partnership with Romanian Universities
Communications and Training Simulations in Disaster Management & Mitigation written by Pamela McCauley Bush, Ph.D., C.P.E.; University of Central Florida; Orlando, FL ([email]) is recommended for funding for the amount requested of $6,635; co funded by both ENG and CISE directorates.

The objective of this grant is to establish an international collaboration with two female engineering faculty members in Romania to further the research being conducted in by the Human Factors and Simulation in Disaster Management Research team at the University of Central Florida. The UCF HFDM Research is lead by Dr. Pamela McCauley Bush and the collaborative partners are Dr. Valentina Balas and Dr. Mihaela Albu. The long term goals of the collaboration are to further research in an international environment that has similarities to the current research environment in the state of Florida in order to validate results and extend activities. Additionally, the goals include faculty interaction for creating broader reaching outcomes, student exchange and international dissemination.

Specific Travel Requested:

Trip A:
a. Meet with Professor Valentina Balas for research discussions
b. Plenary Speaker at IEEE SOFA Conference: Topic Advances in Simulation
Technologies for Disaster Management
- The PI has been invited to provide a plenary speech on my research for the upcoming conference, IEEE International Workshop on Soft Computing Applications (SOFA)
- Location: Szeged - Hungary and Arad - Romania.
- Date: July 29 - August 1, 2009
Trip B:
a. Meet with Professor Mihaela Albu for research discussions
b. Participate in Research Committee Meeting in September 2009 in Cypress
- The PI has been nominated by Dr. Albu for participation on the European Cooperation on Science and Technology (COST) Committee on Intelligent Monitoring, Control and Security of Critical Infrastructure Systems. As a result of the UCF research on communications in disaster management, Dr. Albu has recommended the PI for participation on the Information and Communication Technologies (ICT) sub-committee.
- Location: Cyprus
- Date: September 2009

Omnia El-Hakim, Ph.D.-Program Director
For Diversity and Outreach
National Science Foundation
Directorate for Engineering
4201 Wilson Blvd., Suite 505N
Arlington, VA 22230
Tel: (703) 292- 2149
Fax: (703) 292- 9013
E-Mail: [email]